Mathematical Sciences: Conference of Determinantal Ideals and Representation Theory; April 18-20, 1991, University of Arkansas

The study of determinantal ideals has a long history in mathematics; in algebra, analysis and geometry. In particular, the study of generic matrices plays a central role in commutative algebra and algebraic geometry. The search over the past thirty years for a universal resolution of the ideal generated by the minors of order p of the m x n generic matrix has been intimately linked with the representation theory of the general linear group. This grant will partially support a conference devoted to the subject of determinantal ideals and representation theory, to be held April 18-20, 1991 at the University of Arkansas. The principal lecturer will be David Buchsbaum from Brandeis University. The effectiveness of the conference also depends on the supporting speakers who will give shorter talks, and on the presence of young researchers and graduate students.